Career: Operator Algebras and Applications

Abstract
Ge

The National Science Foundation strongly encourages the early development of academic faculty as both educators and researchers. The Faculty Early Career Development (CAREER) Program is a Foundation-wide program that provides for the support of junior faculty within the context of their overall career development. It combines in a single program the support of quality research and education in the broadest sense and the full participation of those traditionally underrepresented in sciences and engineering. This program enhances and emphasizes the importance the Foundation places on the development of full, balanced academic careers.